Fundamental Studies in Non-Linear Chromatography

This research is in the general area of Analytical and Surface Chemistry and in the subfield of chromatography. This research is designed to develop and expand analytical and numerical solutions for fundamental problems of chromatography at finite concentrations. The overall goal of this research is to evaluate the influence of the various experimental factors on the production and yield of a separation or purification by preparative liquid chromatography. This goal will be achieved by studies of thermodynamics and phase equilibria. This research is designed to better understand the separation of materials under non-ideal conditions such as heavily loaded separation columns. Fundamental chemical parameters will be examined to better optimize such separations.